An Automated Programming Tool for FPGA-Based Reconfigurable Systems

Field Programmable Gate Arrays (FPGAs) and Field Programmable Interconnect Devices (FPIDs) allow the integration of thousands of logic gates on a small board and completely rearrange their interconnections rapidly for different applications. A major obstacle to using such reconfigurable systems is the lack of software tools to aid in designing applications to run on the system forcing the designers to manually partition their design to match the architecture of a particular reconfigurable system. This project aims at modifying the Anyboard design environment to support many types of FPGAs and FPIDs. Additionally the basic algorithm to partition the design will be redesigned with a faster and more sophisticated version. The design tools developed by X Engineering Software Services Corporation would aid digital designers to experiment with alternate designs using different types of FPGAs and FPIDs.